Young Scholars Research Participation in Science and Engineering: Target Program for Minority and Economically- Disadvantaged Students

The University of Iowa proposes to enhance its established summer research participation program in science and engineering for twelve high school students to offset four identified needs: (1) the need to involve industry as part of the learning component; (2) the desire to openly recruit more minority and economically disadvantaged students; (3) the desire to expand the impact of the program beyond the current eight week course; and (4) the need to underpin the base of financial support for the entire program beyond the period of proposed effort. The proposed target program seeks to augment the existing program through (1) the active recruitment of minority and economically disadvantaged students in Iowa and Chicago; (2) the inclusion of industry as an active partner in career awareness development and program financial support; and (3) structured follow-up activities which not only will impact on the target group and the eighty regular participants, but will also influence the participants' peers and their home community.